High Pressure RF Discharge Lasers

Gas lasers were used in industry many years ago, but continue to be of research interest because the excitation methods and detailed processes involved are not sufficiently understood. The feasibility of using a new type structure, a modified wave guide, to achieve high pressure, carbon dioxide, laser is demonstrated. The implications are that this could lead to small form factor, tunable, and well-controlled lasers of sufficient power to fit many portable applications. The discharge processes are elucidated and the investigation is extended into rare gas lasers to validate the possibility that these also can be excited by a radio frequency (eximer) method in a small structure. Preliminary plans for follow-up, developmental research are formulated.